Computational Complexity and its Relationship to Number Theory

The primary focus of the research is the number theoretic aspects of computational problems. In recent years there has been a resurgence of interest in this area. Ancient problems have been solved(e.g. primality testing), new subdisciplines have been spawned (e.g. public-key cryptography) and deep mathematical tools have emerged (e.g. Abelian varieties, class field theory). One area of particular interest is the new 'number field sieve'. This collection of algorithms, developed by many researchers, is the most significant advance in integer factoring in the last quarter century. The PI will continue to investigate improvements and generalizations of this method. The application of the number field sieve to the discrete logarithm problem is of particular interest. A second area of interest is the application of recent results to public-key cryptography. The United States Government has recently proposed a national 'Digital Signature Standard' (DSS). The proposed signature scheme is controversial and the potential of several methods will be investigated, including the number field sieve, for breaking the proposed system or for introducing 'trapdoors'. Another area of investigation involves the development of new mathematical tools.